Research in Multi-Input Multi-Output Robust Control Design

9313764 Chait This research project deals with the development and extension of the standard Quantitative Feedback Theory (QFT) diagonal controller design to non-diagonal controllers for multiple-input, multiple-output systems. The methodology incorporates the interaction effects between control design at each sequential loop closure in multiple loop systems, and emphasizes these effects in terms of the gain and phase margins of the closed- loop transmission. The efficacy of the techniques to an active noise control experiment in a three-dimensional asymmetric cavity. The apparatus represents highly coupled transfer function matrix from speakers to microphones, lightly damped resonance frequencies in the three-dimensional acoustic space, and uncertainty in modeling and identification of the transmission between speakers voltage and microphone sound pressure levels. The research results provide a more effective design tool compared to those currently available. ***